Second International Congress on Theoretical Chemical Physics (ICTCP II); New Orleans, Louisiana; April 9-13, 1996

9632868 McGlynn Support for students, postdocs and speakers is provided to the Second International Congress on Theoretical Chemical Physics in New Orleans, April 9-13, 1996. The congress features a broad range of talks in theoretical chemistry, biophysics, atomic and molecualr physics and environmental chemistry. ***